Research in Random Matrices and Integrable Systems

This proposal has three main projects. The first, with Harold Widom, is to
study the connection between the ``Airy process'' and integrable differential
equations. The Airy process is a stochastic process that is expected to
describe a wide class of growth processes. The distribution function for the
Airy process at one single time is the GUE Tracy-Widom distribution
function. In this case the distribution function is represented as either a
Fredholm determinant of a certain operator (the ``Airy kernel'') or in terms
of a solution to a certain nonlinear ordinary differential equation called
Painleve II. The finite-dimensional distribution functions for the Airy
process (at many different times) are also expressible as Fredholm
determinants of an integral operator (the ``extended Airy kernel''). The
goal is to find the corresponding integrable differential equations and to use
these differential equations to analyze the Airy process. The second project,
again with Widom, is to complete earlier work on the asymptotics of
solutions to the periodic Toda equations by determining the asymptotics
on what are called the ``critical curves.'' The third major project, with
graduate student Momar Dieng, is to find explicit Painleve type
representations for the distribution function for the next-largest, next-next
largest, etc. eigenvalues in the random matrix models GOE and GSE.
These distribution functions will have applications to statistics. If time
permits certain combinatorial sums involving Hall-Littlewood symmetric
functions will be analyzed.

The famous bell-shaped curve, known more formally as the Gaussian
distribution function, is well-known due to its many applications in the
social sciences, the physical and biological sciences, and engineering.
Mathematicians in the early part of the twentieth century gave precise
conditions under which one can expect to find the Gaussian distribution.
It is now common in these disciplines to apply these conditions (``sums of
independent random variables'') to predict the appearance of the Gaussian
distribution. When these conditions fail and we are dealing with strongly
dependent random variables, we cannot expect to see the Gaussian.
Quite remarkably it has been realized in recent years that the distribution
functions of the largest eigenvalues in various random matrix models
describe new universal laws for a wide variety of problems appearing in
combinatorics, growth processes, random tilings, queuing theory, the
analysis of large data sets (``principal component analysis'') as well as
applications to the physics of quantum dots. These distribution functions,
known as the Tracy-Widom distribution functions, are now realized in
terms of a time dependent process called the Airy process. (The Airy
process plays the same role as Brownian motion does to the Gaussian
distribution.) One of the goals of this project is to find differential
equations that characterize the Airy process. These differential equations
will facilitate analysis of the Airy process much in the same way that the
ordinary differential equation (Painleve II) has aided in the description of
the Tracy-Widom distribution functions. A second project is to go beyond
the largest eigenvalue distribution functions and to consider, for example,
the next-largest eigenvalue distribution functions for a class of models
called GOE and GSE. The GOE case is particularly relevant to
multivariate statistics and these additional distribution functions can be
expected to find applications to problems involving large data sets.